Economic Survey Response Behavior: Experiments Using A Virtual Laboratory

Daniel L. McFadden University of California - Berkeley SBR-9601149 Economic and other surveys are plagued by the continuing problem of trying to elicit information about respondents' true behavior. Survey questions must be carefully framed to accomplish the aim of eliciting accurate information. Among the specific problems arising in survey design to be investigated are anchoring and focal points. Anchoring refers to a widely observed and well- documented family effects in which presumably irrelevant cues or settings provided by questions influence responses. For example, subjects asked to judge whether an uncertain quantity, such as the length of the Amazon, exceeds a certain value (the anchor) and then asked for an estimate, will typically give a response that is pulled toward the anchor. Focal point refers to a rounded off, conventional response. For example, subjects asked for the time it takes them to get to work will frequently give answers such as 5, 10, 15, 30, 60 minutes, rather than intermediate values, so that one observes spikes of responses at these focal values even though the true values have a continuous distribution. The research will use econometric methods to infer the extent of these biases and how they might be adjusted for based on experiments with questionnaire design using the internet (world-wide web) as a virtual laboratory.